Presidential Young Investigators Award

The core research focuses on the representation, management, and communication of data, design decisions, and knowledge throughout the life cycle of facility planning, design, construction, and management. The integrated data systems accommodate spatial data (3D object models), graphical data (pictorial representations), nonspatial data (object attributes, specification), temporal data (design versions and construction plans), and design-dependent knowledge (the rationale behind design decisions). Previous work established a new model for integrating existing engineering databases and applications across networked computers through an intelligent, centralized network interface, including automatic translation of data queries and replies between widely varying views of data. The model has been implemented in a prototype system called KADBASE (Knowledge-Aided Database Management). The KADBASE research will help architects, engineers, contractors, and facility managers cooperate and communicate using their current, familiar applications and their successors. The organizational problems arising from industry fragmentation will be at least partially alleviated through the virtual integration of engineering computer systems using this approach. //